Tools and Techniques for Use of the Scheme Programming Language in Undergraduate Education

9312614 Haynes This award is for the development of software and curricular materials to support the use of a dialect of the Scheme programming language in undergraduate computer science courses. The simplicity and power of Scheme that account for its widespread use in computer science research also explain its increasing use in education. This project, complementary to the one at Oberlin College, stresses the development of the programming environment and tools. The programming environment will be portable to a wide range of implementations and window systems and will support graphical user interface development, hypertext authoring and delivery, object- oriented programming, and static type analysis, among other modes of programming and courseware development. Indiana University will investigate the use of Scheme in a variety of courses, including but not limited to introductory programming, programming languages, mathematical methods, data structures, and artificial intelligence. Teaching materials to be developed include computer assisted instruction courseware, outlines and visual aids for a variety of curricular options, laboratory manuals, and exercise sets including software support and solutions. Curricular knowledge, materials, and software will be disseminated through summer workshops, Internet, professional meetings, and publications. Evaluation instruments will assess the effectiveness of Scheme as a first programming language and the utility of the curricular materials developed by this project. ***